Purchase of an X-Ray Diffractometer

The technique of X-ray crystallography is a powerful tool for the determination of the molecular structure of compounds as diverse as small polypeptides and complex metal clusters. When combined with the latest computer software, the technique is becoming remarkably easy to put into practice. Access to X-ray crystallographic instrumentation markedly improves the ability of chemists to carry out frontier research. The Department of Chemistry at the University of California, San Diego, will use this award from the Chemical Instrumentation Program to help acquire an X-ray diffractometer. The areas of chemical research that will be enhanced by the acquisition include the following: 1) Structural elucidation of marine natural products 2) X-ray diffraction of peptides 3) Structural aspects of electron transfer processes 4) Metallo-organic molecules as mediators and models 5) Transmission of stereochemical information 6) Structure of metallo-enzyme mimics.